Estrogen Stimulated Calcium Dependent Uterine Proteinase

Uterine arginine esteropeptidase is an estrogen-responsive enzyme complex. It consists of 2 components: a membrane-bound activator (A)and the 78 kDa proenzyme of a trypsin like serine proteinase (B). Activation of the proenzyme is calcium dependent and involves no change in molecular weight. B hydrolyzes arginine esters and actin and myosin. Both A and B increase in activity in the uterus when estradiol (E2) is given to the rat. The increase in A and B activity are hormone and tissue specific. To test the hypothesis that this enzyme is important in the development of the uterus studies are proposed in three areas: 1)the mechanism of activation of B by A and the role of calcium, 2) the mechanism ofthe E2 response, and 3) studies directed toward identification of the functions of A and B. Estrogen stimulation of the immature rat uterus has pleiotropic effects which are not well understood at the molecular level. Responses in the first few hours after stimulation include the induction of new protein synthesis, major changes in membrane permeability, and alterations in the specific activity of some enzymes. Later responses, 24-48 hours after stimulation, include DNA synthesis and cell division. One of the early responses is the increase in specific activities of the two components of the complex calcium dependent enzyme that is the subject of this study. The results of this research will contribute to our understanding of the mechanisms by which estrogen affects uterine growth and development.